Workshop on the vBNS and the Research Agendafor Networking and Applications; June 22-23, 1995; Washington, D. C.

9526366 Weingarten As part of its new architecture for NSFNET, NSF is funding the creation of a very High Speed Backbone Network Service (vBNS). A major role envisioned for the vBNS is to serve as a platform for research on very high speed networking and networking applications. Now that the vBNS project is underway, it is time for the research community and those responsible for the vBNS to begin a closer dialog on what research can and will be done on the vBNS and how the researchers will gain access to the infrastructure. The Computing Research Association will sponsor a workshop to start that dialog. Approximately thirty researchers in networking and applications, from academia and industry, will meet in Washington DC on June 22 and 23, 1995. together with government agency officials and vBNS designers and operators, they will discuss the current and likely future research agendas in high speed networking and the implications of those agendas for the vBNS as an experimental environment.